Recovery Type A Posteriori Error Estimates

Zhang
The investigator studies a posteriori error estimates for
the numerical solution of partial differential equations. He
develops general mathematical theory for recovery type a
posteriori error estimates and explores a new gradient recovery
technique and associated error estimator that has better
properties than the existing ones. Some recent mathematical
theory in finite element superconvergence, asymptotic regularity,
as well as improved interior analysis, is employed in the
project.
Numerical solutions of differential equations are essential
in all areas of science and engineering. But the numerical
solutions are often less accurate than one desires. It is
therefore important to estimate the error and to use that
estimate to improve the accuracy. Error estimation is essential
for effective and reliable computation. Recovery type a
posteriori error estimates are post-processing techniques that
use a numerical solution produced by some base method to produce
approximations that are of higher order of accuracy than the base
method solution, and that combine the two solutions to estimate
the error in the approximate solution. The techniques are common
but not theoretically understood or justified, especially for
nonuniform meshes. The investigator studies these methods and
develops a new kind of recovery type error estimator that offers
some advantages over present alternatives. The project fills a
gap between engineering practice and mathematical theoretical
development. The project includes training of graduate students.
There are interdisciplinary connections with engineers and other
scientific computing disciplines, and with industry.